Planning Grant: An Engineering Research Center for the Engineering of Emergent Biocomplexity (ERC-EEB)

Engineering Research Center for the Engineering of Emergent Biocomplexity: Draft Abstract

Part 1: Persistent societal challenges prohibit broad-based advancement and human flourishing. Cancer and structural heart defects remain prevalent, unpredictable, and destructive to both families and public resources. Habitat challenges limit production of high-value crops like broccoli. Biotechnology employment is oppressively concentrated in a few large cities, restricting economic opportunity and family planning. These diverse grand challenges exhibit complex commonalities that motivate an integrated solution. Specifically, we believe three facets of biocomplexity—developmental, adaptive, and pathological—are governed by as-yet-unknown emergent construction principles or Rules of Life (one of the NSF’s 10 Big Ideas). We propose an Engineering Research Center for the Engineering of Emergent Biocomplexity (EEB). EEB will pursue foundational science, technology enablement, and economic translation of the engineering system of Emergent Biocomplexity. We will identify construction rules that govern emergent biocomplexity by interrogating three engineering test-beds for which we have extensive expertise and established experimental systems: 1) Developmental emergence: heart morphogenesis, 2) Adaptive emergence: inflorescence morphogenesis, and 3) Pathological emergence: Glioblastoma morphogenesis. Multi-scale, systems-level understanding from each test-bed will cross-inform mechanisms in the others, and through convergent research we will achieve transformative engineering outcomes with high impact: 1) A bench-grown robust, structurally advanced ventricle to advance quantitative developmental biology and enable direct evaluation of restorative approaches for malformed hearts. 2) New broccoli amenable to Eastern US climates with consumer-preferred structural architecture and preservation of vital nutrients. 3) An engineered glioblastoma tumor test platform to identify and validate new drug targets based on controlling emergent behaviors inaccessible to current technologies. In the process of achieving these goals, we will innovate next generation quantitative live imaging and multi-scale/multi-valent computational simulation technology that will accelerate and advance the understanding and control of dynamic biological complexity. We will leverage these science and engineering gains with innovative emergence-based STEM training to transform broaden biotechnology related employment access. Tackling this Grand Challenge requires the deep collaboration of many experts across diverse disciplines (e.g. Math, Plant science, Engineering, Epistemology), siloed disciplinary cultures and language barriers, institutional barriers, and geographical distance. Our institutions: Cornell University, City College of New York, University of Pittsburgh, and the Ohio State University, are ideally positioned within key rural and inner-city domains. This planning grant will help coalesce the academic and industrial expertise and collective infrastructure, build lines of community trust, and refine our strategic plan to carry out these goals. Further, this grant will enable us to engage disparate community stakeholders early in the process to improve our unique emergent computational workforce development program.

Part 2: We will plan an ERC to pursue a new convergent research field of emergence science and engineering, focused to discover the Rules of Life that are conserved or unique between diverse emergent biological systems. We will apply deep convergence and team science to refine the communication of emergence science across discipline chasms and identify science tools for interrogating variation and robustness within complex biological systems. This will be achieved through cross-collaborative, multi-institutional test bed team meetings whereby the science and engineering frontiers are solidified and well-grounded paths forward with technical and knowledge success milestones are stratified. Through these meetings, we will establish and prioritize shared needs for engineering a new modular multi-valent computational simulation platform and multi-scale quantitative imaging systems. These systems will provide transformative data generation and analysis tools for accelerating the science and engineering of emergent biocomplexity, using each test bed domain to stretch and refine their capabilities. These technology pipelines will additionally serve as engagement nodes for computational biotechnology firms as they seek to expand their footprints into this emerging economic sector. We will engage regional industry leaders through the planning process to further integrate their technology and training desires. Further, our leadership team includes communication and team formation/team performance experts who will study this planning process to develop models for best practices for ideation and team communication within convergent research environments. The success of our planning strategy will establish a compelling cross-platform test case and refine a new process of cross-disciplinary team engagement for transforming science and engineering research for identifying and solving shared highly complex problems. The proposed planning process will also refine stakeholder needs for culturally responsive workforce generation program for a Center-credentialed computational gig-economy. We will work with existing remote workforce talent and their employers to frame training, certification, and advancement ladder ideals for career sustainability and advancement within computational simulation and analysis space. This broad based, branded and securely managed system would eliminate location oppression in the workforce and enable emergent expertise production. This approach will also catalyze rural engagement in STEM education and the economy. We will also coalesce and refine our novel emergence science and engineering concepts through broadly accessible science symposia, from which focused reviews in leading science journals will evangelize the rationale and approaches. These meetings will also help refine how we continue to include diverse voices from across discipline and stakeholder boundaries for sustaining impact through the ERC period. Finally, these components will then be integrated into a formal ERC proposal to implement the research, engineering, and workforce development goals.